A Fundamental Engineering Study of Swallowing to Aid Those Handicapped by Dysphagia

This proposal addresses the fundamental engineering issues of swallowing. This is a "High Risk - High Gain" type of proposal. With the continuing increase in the geriatric population, swallowing is becoming a significantly greater societal problem. This PI has addressed the fundamental engineering issues of swallowing in such a way that if the goals of the proposal are met, a new food processing technology can be introduced that has the potential to alleviate the swallowing deficiency and to create new markets for U.S. manufacturing.